Research Experience for Undergraduates at Physics/JILA

JILA (formerly Joint Institute of Laboratory Astrophysics) and the University of Colorado Department of Physics will conduct REU summer programs introducing 12-14 undergraduates to active, on-going physics research. The faculty are well-recognized contributors to the fields of Atomic, Molecular and Optical Physics, Chemical Physics, Condensed Matter Physics, Elementary Particle Physics, Geophysics, and Gravitational physics. Special efforts will be made to include significant participation levels from women and minorities. The students will be expected to master at least a part of a large task. Weekly meetings, lab tours and field trips will ensure an active and supportive environment for all students. At the end of their 10-week employment they will give short seminars describing their work and write a report. Students from smaller colleges will be exposed to graduate students here, thus encouraging the undergraduates to continue their education.